Treasure From The Cliffs: Exploring Marine Fossils -- The Calvert Marine Museum's Paleontology Exhibit

9453762 Gottfried The Calvert Marine Museum will develop an exhibit and complementary programming interpreting the Miocene Age marine life. Treasure from the Cliffs: Exploring Marine Fossils will use the world famous fossils of Calvert Cliffs as the basis for the exhibit. It is their intention to convey a strong sense of the personal process of discovery and the creative component of scientific inquiry to the exhibit visitors. In their words, "The overriding purpose of Treasure from the Cliffs is to model a new paradigm for natural history exhibits: to take a humanistic and holistic approach that recognizes the centrality of imagination to the scientific enterprise, and that engages curiosity and creativity -- as well as intellect -- in the process of science learning." Upon entering the exhibit, a visitor's interest will be peeked by seeing the large, dramatically lit, fossil Great White Shark Tooth. Visitors will get involved in the wonder and process of science at the beginning of the exhibit in the Paleontology Office/Lab and Fossil Identification area. They will then move on to see a replicated section of the Calvert Cliffs and cases illustrating how fossil deposits form. Two recreated Miocene dioramas one of which will include a full-size skeletal reconstruction of the giant fossil Great White Shark come next. Visitors will then be able to investigate on their own in a reading station and a video and demonstration theater. Visitors will exit the exhibit after a section that shows how the modern Chesapeake Bay was formed. This leads them seamlessly into the museum's next exhibit hall Estuary Patuxent: A River and its Life. The museum will develop a series of complementary programs in association with this exhibit to reach a wider audience that will include formal educators among others. They will organize a speakers service, develop a fossil field guide, and produce a video about the Great White Shark.